New Directions in the Study of Finite Automata

This project will focus on three aspects of finite automata. 1. The role of randomness in finite automata. The class of functions computed by two-way probabilistic finite automata will be studied. Techniques for proving non-membership will be developed, and different notions of acceptance will be considered. 2. Succinctness of representations. Techniques for proving lower bounds on the size complexity of finite automata will be developed. 3. Complexity of minimization problems. The computational complexities of several conversions of a finite automaton of one type into a minimal automation of another type will be determined. Of particular importance is the diversity-based representation of an automaton, which has applications in the theory of learning. In addition, some problems on program instance checking will be investigated.